III: Medium: Better Information Integration through Uncertainty

This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5).

The problem of providing seamless, integrated querying over multiple
interrelated sources of information has been plaguing the database,
information management, information retrieval, and artificial
intelligence research communities for decades. There have been
successful lines of research addressing specific components of the
data integration problem, and large "one-off" systems have been built
that successfully integrate specific information sources in specific
domains. However, a completely general solution to the data
integration problem is thought not to be realizable.

The investigator is developing a new type of information integration
system that is both novel and realizable. It is based on the following
premises and components.

1) The system provides a general data integration solution targeted
for a certain type of environment: when multiple sources have joining,
overlapping, and potentially conflicting information about the same or
closely related real-world entities.

2) The system permits and exploits uncertainty as an integral part of
data integration: Uncertainty may be present in source data, source
schemata, the integration process, integrated schemata, and integrated
data. In fact, uncertainty can play a key role successful information
integration.

3) The system relies on general-purpose entity-resolution as a
fundamental building block of the integration process and the
integrated information. Furthermore, the system retains both the
uncertainty and the lineage associated with the entity-resolution
process.

4) The system incorporates powerful lineage capabilities, tracking
where, when, and how data was produced, how it has evolved over time,
and how it has been combined and manipulated as part of the
integration process. Lineage is used to enhance the integration
process, and it is offered to the end-user in a variety of forms for
data understanding and conflict-resolution purposes.

Further information on the project can be found at the project web
page: http://infolab.stanford.edu/udi/